Research Initiation Award: Resilience of the American Horseshoe Crab in Urban Estuaries

This HBCU-UP Research Initiation Award project at the University of Maryland Eastern Shore aims to improve understanding of the current and historical population dynamics of horseshoe crabs in the Mid-Atlantic region and their response to habitat changes The American horseshoe crab (Limulus polyphemus) inhabits the Eastern coast of North America, from the Gulf of Maine to the Yucatán Peninsula. While horseshoe crabs tolerate variable environmental conditions, the impact of urbanization on their populations remains unclear. Coastal development and beach erosion have reduced the size of essential spawning beaches in the region. Horseshoe crabs prefer to spawn on narrow, low-energy beaches, which leads them to migrate into inland lagoons and urban canals. In these areas, they encounter hardened shorelines, elevated water temperatures, increased contaminant loads, lower salinity, and reduced dissolved oxygen. Each of these factors might impact the population.

This project will explore horseshoe crabs’ response to habitat changes by comparing genomic and phenotypic diversity among urban, undeveloped, and offshore populations. Research on other terrestrial and marine organisms shows higher expression of stress markers and increased physiological adaptation in urban environments. Such changes may drive local adaptation and reduce genetic connectivity between urban and undisturbed populations. The project will use single nucleotide polymorphisms, environmental DNA, and differential gene expression to assess the adaptive potential of horseshoe crabs in the Maryland’s Coastal Bays. Key contributions include a new population genomic assessment of the Mid-Atlantic horseshoe crab population, identification of migration patterns, and insights into the potential long-term effects of environmental change. The project will train undergraduate and graduate students in fieldwork, molecular laboratory techniques, data analysis, bioinformatics, scientific writing, and conservation genomics. This includes a research opportunity for students enrolled in a molecular ecology course, who will work on developing a method for non-invasive estimation of genetic diversity during migratory and mortality events.